CAREER: Mapping Problems in Computational Geometry and Topology

Measuring similarity between objects is a fundamental problem prevalent in many applications, including registration in medical image processing, function detection in protein modeling, reconstructing evolutionary trees in phylogenomics, and finding recurrent patterns in data analysis. Different measures of similarity have been studied for a range of problems in engineering and computer science, ranging from very accurate but hard to compute to less accurate but efficiently computable. This project studies different similarity measures from the computability and effectiveness point of view. It views all similarity measures as maps between objects, and considers different geometric and topological representations of the objects.

Specifically, the research of this award focuses on the following dichotomy. On one hand, it is often hard to compute or even approximate mathematically accurate similarity measures, studied abstractly as geometric shape matching and metric embedding problems in computational geometry and topology. On the other hand, there are faster heuristics engineered for specific applications that lack theoretical guarantees, hence are not generalizable. In dichotomy is opportunity – this project will use parameterized complexity to create a finer understanding of the complexity of computing similarity measures between metric spaces using different representations and properties. If successful, the research of this award will result in new algorithms with new performance guarantees, in particular, for cases of practical interest.

Measuring similarity between geometric objects is a fundamental problem with numerous applications, so this project, and the students that it trains, will have significant impact on theory and practice in many areas.